Development of an Undergraduate Structural Dynamics Laboratory

This project encompasses the development of equipment and experiments for teaching the behavior of structures under dynamic loading conditions to undergraduate engineers. The laboratory development augments the facilities available in an existing laboratory which is used to teach behavior of structures under static loads. Tests begin with simple free vibration experiments demonstrating how dynamic parameters characterizing motion are measured, progressing through structures subjected to forced vibration caused by dynamic forces (e.g., wind loads) or base motion (e.g., by an earthquake), and application of vibration reduction techniques (e.g., by use of dampers and base isolators). Small-scale structures will be used in most of the experiments, but in at least one experiment, the students will evaluate the dynamic performance of an existing prototype structure. The overall objectives in conducting such tests include: (1) enabling the student to understand dynamic structural behavior and related theories; (2) teaching the students the use of modern dynamic testing equipment and data acquisition facilities; and (3) serving as a motivational force and as a general enrichment of their educational experience. Instruments will provide state- of-the-art experience and yet will be easy to use. The experiments which can be performed are essentially unlimited and can be changed to meet changing curricular needs at no additional cost.